DISSERTATION RESEARCH: The causes and consequences of asymmetric dispersal: an experimental approach

The ability of organisms to move among patches has broad implications for evolutionary and ecological processes such as gene flow and population persistence. Understanding these processes often rests on the assumption that movement among patches is symmetric. In reality, individual movement frequently follows environmental cues or tends to be directed toward higher quality habitat patches, and is asymmetric. This study proposes to quantify the effects of asymmetric or directional dispersal on metapopulation colonization-extinction dynamics and, therefore, persistence of patchy populations. It relies on field experiments to test how different behavioral mechanisms affect the magnitude of movement asymmetries in a common insect. Results will lead to more accurate measures of population connectivity and thus to more accurate metapopulation models

Results from the study will be made available in different formats to four distinct groups - scientists, managers and conservationists, the general public, and young students. One of the investigators is Hispanic and serves as an effective role model for undergraduates from under-served groups. Undergraduates from these groups will be recruited to the project, and diverse social media (such as YouTube, TeacherTube) will be used to disseminate research results to young scientists and teachers. Manuals for managers and policy makers will be produced in both English and Spanish; these will explain metapopulation theory and how to conduct and analyze metapopulation experiments.